Accelerator-Based Fast Neutron Brachytherapy

9726657 Yanch This proposal is on research to develop accelerator-based, fast neutron brachytherapy for the treatment of tumors. Radiotherapy using neutrons has been shown to be effective in treating a number of tumor types including advanced tumors of the brain. However, the use of external beams of neutrons has also led to unacceptable healthy tissue complications. In this research, damage to healthy tissue would be avoided by using a very small bachytherapy tube, which delivers neutrons from a small accelerator coupled to a flexible positioning device. Using a small accelerator, instead of an external beam of neutrons, has important advantages since it: (1) eliminates storage and handling problems since this neutron source can be turned off when not in use, (2) maintains a constant intensity when in use, and (3) can produce a neutron energy spectrum that can be somewhat tailed for tumor size, and (4) can deliver therapy in a much shorter period of time than that of other methods under consideration. Preliminary studies by the investigator have indicated the feasibility of this technique, but also indicated a heating problem, which requires active cooling during use. The current research would then investigate the physical and engineering feasibility of this therapy approach. The major elements of this proposed research include: (1) design and testing of a new prototype tube to enhance heat removal, including full evaluation of cooling failure conditions, (2) neutron and photon dosimetry in a tissue equivalent phantom over a range of particle currents and particle energies, including the duel ion chamber method for mixed field dosimetry at large distances from the source and radiochromic film dosimetry close to the source, and (3) design of a gantry system and moveable treatment couch to produce a practical and reliable positioning system which provides complete freedom for locating the brachytherapy tube at any orientation. ***